"Roman City"...

"Roman City," fourth in a series of PBS specials based on the acclaimed books of David Macaulay, is an hour-long film that traces the planning, engineering, building and habitation of an ancient Roman city at the height of empire. The program continues the unique Macaulay presentation format of a cinemaquality animated dramatic story juxtaposed with live- action documentary segments, hosted by Mr. Macaulay and filmed at actual sites portrayed in the story. Each film roots its dominant structures and technology firmly within the thought and culture of its historical period. The dual presentation style has enabled the previous Macaulay specials to capture a wide range of viewers from young children all the way up to older adults. "Roman City," as well as the previous award-winning Macaulay specials--"Castle," "Cathedral" and "Pyramid"--is specifically aimed at enhancing the scientific, technical and humanistic understanding of both young people and adults outside of the formal educational environment. All indication from the previous programs suggests that this goal has been widely achieved. There is a natural curiosity about other cultures, about things technical and how they interrelate with human needs and aspirations, and we believe our unique format satisfies that curiosity in an entertaining, informative and educational manner. The ancient Romans achieved breakthroughs in planning and the delivery of those elements deemed necessary for the functioning of an increasingly world. Aqueducts, sewers, roads, bridges, amphitheaters and public buildings, even public lavatories, all speak to the technical mastery of the ancient Romans. And if their social aims were not always as "advanced" as their scientific and technological sophistication, then that, too, provides a modern object lesson on the critical and mutually dependent interrelationship of science and civilization.